Mathematical Sciences: Set Theory

9322442 Woodin The focus of the project is the relationship between large cardinal axioms and determinacy axioms. This is interpreted somewhat broadly and is meant to include, for example, the study of a new class of models. These models are generated as forcing extensions of models in which the axiom of determinacy holds. They are interesting because they provide the first examples of canonical models in which the Continuum Hypothesis is false. One consequence of Kurt Godel's results of 60 years ago is that there will always be mathematical problems which cannot be solved. This first became a practical concern 30 years ago when Paul Cohen showed that Cantor's Continuum Hypothesis cannot be settled. Since Cohen's work, numerous problems have been shown to be unsolvable. The large cardinal hierarchy provides in many cases a resolution to the problem of independence. This is done, not by resolving the question, but rather by calibrating the degree to which it is unsolvable. This hierarchy of axioms, each of which asserts the existence of a new infinity, emerges as the fundamental mathematical reality. The investigator intends to study this hierarchy in its many manifestations. ***